Controlled Vapor Phase Nucleation and Growth of Nanometer- Sized Ceramic Oxide Particles

A new aerosol process for producing nanometer scale ceramic oxide particles with controllable degree of aggregation was tested in Phase I of this project. During Phase II, the process will be extended by generating different nanometer size crystalline materials (titania, zirconia, etc.) and developing reliable techniques to control the degree of aggregation. The investigation will incorporate a study of continuous processing, testing for improved sintering characteristics, and economical evaluation of the process. It is expected that the nanometer scale ceramic particles produced by the proposed process will find numerous applications in engine components, machine parts and high temperature gas turbines.